Utah State University: VBNS Connection to High Performance Network

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in agriculture and natural resources, engineering and computer science, geology and mathematics. Collaborating institutions include Pacific Northwest National Laboratory, Jet Propulsion Laboratory, NASA Stennis and Goddard, and the Naval Research Laboratory.